MPS Internships in Public Science Education - MPS-IPSE: Adler Public Education Fellowships

AST-0120987
PI: Gyuk, Geza
Inst: Adler Planetarium

With this award under the MPS Internships in Public Science Education Program, the Adler Planetarium will sponsor a unique graduate fellowship program. The Adler Public Education Fellowship is aimed at drawing young researchers into closer ties with public education and outreach. Each year, a graduate student actively involved in research will be selected as a Fellow and will be responsible for planning, developing, managing and teaching a 4-5 week summer program for local high school students and carrying out a program of public observing/demonstrations on the Apache Point 3.5meter telescope. The Astro-Science Workshop will be a themed, research-based experience combining lectures by prominent astronomers/astrophysicists and hands-on student research and exploration. Because the Fellowship is intended to promote the development of researchers/educators, the Fellow is also expected to continue a vigorous program of research at their home institution.

This award is funded by the MPS Office of Multidisciplinary Activities.
***